Synchrotron Radiation Center (SRC)

The Synchrotron Radiation Center (SRC) operated by the University of Wisconsin-Madison, is a national facility for the utilization of ultra-violet and soft x-ray synchrotron radiation in scientific investigations. The studies carried out at the SRC impact condensed matter physics, atomic and molecular physics, chemistry, materials science and engineering, biology, and other disciplines. The SRC is a user oriented facility which accepts proposals from all qualified investigators. At present, more than 300 individuals make up 75 groups which conduct research on the 26 operating beamlines at the SRC. Of these groups, 69% are from universities, 19% are from national laboratories, and 12% are industrial affiliates. The SRC operation includes nine public beamlines, sixteen Participating Research Team (PRT) beamlines, one joint SRC/PRT beam line, and three beamlines under development. Eighteen operating lines have monochromators. They cover the photon energy range from a few eV to several keV. The SRC operates at two electron energies: 800 MeV and 1 GeV. A clean room and a chemical handling room are maintained for users. Several unique beamlines are available including five beamlines operated by the Center for X-ray Lithography, a beam line developed for high resolution photoemission x-ray microscopy utilizing an undulator (Multiple Application X-ray Imaging Undulator Microscope-MAXIMUM), a high resolution photoelectron spectroscopy beam line being developed for band-structure measurements of Fermi- surface contours in high-Tc superconducting materials, a high precision soft x-ray double-crystal monochromator beam line which provides a tunable beam in the 1500-3700 Ev range for Extended X-ray Absorption Fine Structure studies (EXAFS).